Intelligent Renewal of Urban Wastewater Systems

ABSTRACT CMS9526094 "Intelligent Renewal of Urban Wastewater Systems" PI: Mau, S. T., University of Houston This research is a three-year comprehensive study to be completed as a collective effort of scientists (political, social, and natural) and engineers from the University of Houston, officials from the City of Houston, and pipeline contractors which will develop new technologies for the physical renewal of the Greater Houston Wastewater System and produce a paradigm of policy formulation regarding the sharing of responsibilities between public and private sectors. The project will study mechanisms of microbially-induced corrosion, and quantify the rate of deterioration of concrete pipes, plastic pipes, plastic linings and coatings. New methods of corrosion assessment will be developed based on electromagnetic wave technology. The research will identify new evaluation methods for the viability of new coating materials and plastic linings for pipe rehabilitation and new material mixes to be used as bedding and backfill in placing new pipes. Physical and computer models will also be developed to address the problem of air- hammer in pipelines that results in environmental hazard. The research will also develop and apply a process which a low-income, minority, inner-city community can follow to renew its wastewater lines. The final task is to develop an integrated system and decision-making methodology for intelligent renewal of wastewater systems. The technical and non-technical findings of the study, as well as the methodology for decision-making concerning community responsibilities, will serve as new paradigms not only for future works in Houston, but also for similar programs in other urban communities throughout the U.S.